Mathematical Sciences: Analysis of Ice Core Time Series andPaleoclimate Modeling

This award supports the cross-disciplinary efforts and the development of a research collaboration involving quantitative modelling in the geosciences. In particular the mathematician(s) and the GEO scientist research will focus their attention on the statistical and scientific analysis of records arising from ice cores taken from the Greenland ice sheet. The two-phase interdisciplinary research will begin with the development of scientifically and statistically valid exploratory and confirmatory statistical techniques for assessing the record of the paleoclimate as recorded in the Greenland ice sheet. The second phase will address the development of mathematical models relating the environmental signals deposited in polar ice sheets to important paleoclimate factors. This project presents significant mathematical and statistical challenges to provide geoscientists with tools to be applied to the task of understanding the approximately 200,000 years od Earth's climatic history.